Crossings: Applying Research Findings to Cross-Border Security Cooperation

Workshop Proposal:
Crossings: Applying Research Findings to
Cross-Border Security Cooperation
Abstract
A team of academic researchers, public officials, and industry leaders in southeastern Michigan
and southwestern Ontario propose to conduct a workshop on the cultural and institutional
challenges of cross-border security cooperation, and the application of research findings in
disaster management and organization research to issues of cooperation. We observe that a
growing class of disasters are those that observe no political boundaries, including international
frontiers: certain of these, particularly those involving biohazardous events, can be compounded
by the differences in cultural values and institutional assumptions (for example: accessibility of
health care) on different sides of a border.
To create a research agenda for understanding these issues, and for applying the findings of basic
research, we propose to bring together researchers and disaster management practitioners from
both Canada and the United States for an intensive, one-day discussion of the challenges posed by
these new problems in crisis management and the new opportunities for solving them afforded by
current academic research. In the scope of an intensive, well-staffed discussion between
academics and practitioners, we will be able to identify specific opportunities for applying the
research results of multiple projects, and to identify critical areas for future research collaboration
between Canada and the United States.
The workshop will be jointly sponsored by institutions in Canada and the United States.
Contributions to Theory and Method
This workshop will be an agenda-setting workshop, building a consensus among leading
academics in the United States and Canada, and practitioners at the state, provincial, and
municipal levels, for applied research in crisis management. It will give particular focus to the
application of simulations and modeling, particularly agent-based models of cooperation, to
issues of improving organizations' response to disasters.
Broad Social Impact
This workshop will bring together the users of crisis management research findings with the
producers of that research. Numerous areas that we have already identified where research could
improve practice in the design of drills and scenarios for improved learning, in the
implementation of communication technologies for improved coordination, and in the
improvement of organizational learning from crises can be quickly implemented following this
important meeting of researchers and practitioners.